K-12 Science and Mathematics Curriculum Developers Conference

0088892
SMITH

Over the next three years, an annual conference of developers of comprehensive K-12 science and mathematics curricula and national implementation sites recently funded by the National Science Foundation will be held. The goal of these conferences is to provide a forum for developers to discuss and find solutions to common issues of materials development, evaluation, adoption and implemenetation of reform-based curricula. The conference allows the participants to exchange information, interact with experts and build relationships begun in previous meetings. A conference report and evaluation is publisehd on the web. Each meeting builds uon the previous one.